Studies of Mantle Anisotropy with Long-Period Seismology

This research is to continue study of the long-period seismic response of several idealized isotropic and anisotropic earth models to determine the observable aspects of anisotropy in the earth's upper mantle. The initial calculations suggest that upper-mantle azimuthal anisotropy of a few percent, spatially coherent over the length scale of a typical ocean basin, is sufficient to generate significant waveform anomalies in long- period surface waves. In this research the theory will be extended and tests will be done for different types of anisotropy in the upper mantle.